Undergraduate Research in Cellular Signalling: Research Experiences for Undergraduates (REU)

The undergraduate research program of the Department of Pharmacology, University of South Alabama, will provide research experiences for ten undergraduates. The focus of the program is cellular signalling, e.g., how hormones, calcium, cyclic nucleotides, protein phosphorylation, and induction of specific intracellular proteins may influence cell function. Participating faculty have extramural research support and ongoing, active research programs. Students will be provided a research experience in a laboratory selected by them on the basis of summary descriptions and discussion with the investigator. In addition, students will receive a formal review of the general area of cellular signalling via an organized weekly course. Students will be recruited from regional undergraduate institutions that do not themselves provide formal research experiences for undergraduates. Recruiting will be accomplished through science counselors, mail brochures and campus visits. Students will be provided compensation and access to student facilities (e.g. library and athletic facilities, housing and meal services).